Theoretical Investigations of Atoms and Electrons in Strong Radiation Fields

The purpose of the research is to support collaborative projects in strong-field atomic physics and quantum optics between scientists at the University of Rochester and the General Physics Institute in Moscow.